Energy Exchange, Accommodation, and Reaction Dynamics of Atmospheric Gases with Organic Surfaces

The Environmental Chemical sciences (ECS) program of the Division of Chemistry will support the research program of Prof. John Morris of Virginia Polytechnic Institute and State University. Prof. Morris' research program focuses on the application of molecular beams to investigate the interactions between gas phase molecules of atmospheric significance and organic surfaces. The research discoveries will further molecular level understanding of how common atmospheric pollutants react on surfaces of environmentally important organic materials, including surfactant-coated water droplets or aerosols, soot particles, and polymers. The project will provide excellent educational opportunities for students, including some from under represented groups, desiring to work at the forefront of environmental science.